Symposium on Molecular Electronics - Biosensors and Biocomputers, July 19-22, 1988 in Santa Clara, CA

This is a conference grant for the purpose of defraying the travel and per diem expenses of invited speakers at the Symposium on Molecular Electronics - Biosensors and Biocomputers. This conference will be held in conjunction with the 19th Annual Meeting of the Fine Particle Society during July 19-22, 1988, at the Santa Clara Convention Center, Santa Clara, California. This Symposium is a major activity planned for the Biotechnology, Health and Environment Division, which is one of the six divisions in the Society. It is designed to cover multidisciplinary aspects of materials sciences with a common bearing on molecular electronics and biosensors. The intended audience is from equally multidisciplinary backgrounds but with a common interest in biotechnology. This meeting also serves as a forum for interaction of leading scientists with diverse expertise. Some of the invited speakers have never presented their work to the same audience before, and others, while not considering their work in the context of molecular electronics and biosensors, have nevertheless contributed significantly in the past to basic research which is relevant to molecular electronics and biosensors. It is our hope that this meeting will serve as a stimulus to the audience which may become a major human resource for future research and development of molecular electronics devices and biosensors. It is also our hope that the meeting will foster an enhanced interaction among scientists from diverse backgrounds.